Coastal SEES Collaborative Research: A cross-site comparison of salt marsh persistence in response to sea-level rise and feedbacks from social adaptations

Nearly half of the world's population lives within 100 km of the coast, the area ranked as the most vulnerable to climate-driven sea-level rise (SLR). Projected rates of accelerated SLR are expected to cause massive changes that would transform both the ecological and social dynamics of low-lying coastal areas. It is thus essential to improve understanding of the sustainability of coupled coastal human-environment systems in the face of SLR. Salt marshes are intertidal habitats that provide a buffer for coastal communities to SLR and are also valued for many other ecosystem services, including wildlife habitat, nutrient cycling, carbon sequestration, aesthetics, and tourism. They are highly dynamic systems that have kept pace with changes in sea level over millennia. However, projected rates of SLR and increased human modification of coastal watersheds and shorelines may push marshes past a tipping point beyond which they are lost. Developing realistic scenarios of marsh vulnerability demands an integrated approach to understanding the feedbacks between the biophysical and social factors that influence the persistence of marshes and their supporting functions. This project will examine the comparative vulnerability of salt marshes to SLR in three U.S. Atlantic coastal sites that vary with respect to sediment supply, tidal range and human impacts. The research team will also address how feedbacks from potential adaptations influence marsh vulnerability, associated economic benefits and costs, and practical management decisions. Additional broader impacts include incorporating research results into curriculum used at local schools, an on-line cross-disciplinary graduate course, and on-going teacher-training programs, as well as training one postdoctoral researcher, four graduate students, and eight undergraduate researchers. This project is supported as part of the National Science Foundation's Coastal Science, Engineering, and Education for Sustainability program - Coastal SEES.

This project leverages the long-term data, experiments and modeling tools at three Atlantic Coast Long-Term Ecological Research sites (in MA, VA, GA), and addresses the broad interdisciplinary question "How will feedbacks between marsh response to SLR and human adaptation responses to potential marsh loss affect the overall sustainability of the combined socio-ecological systems?" The goals of the project are to understand: 1) how marsh vulnerability to current and projected SLR, with and without adaptation actions, compares across biogeographic provinces and a range of biophysical and social drivers; and 2) which marsh protection actions local stakeholder groups favor, and the broader sustainability and economic value implications of feasible adaptation options. The biophysical research uses historical trends, "point" and spatial models to determine threshold and long-term responses of marshes to SLR. Social responses to marsh vulnerability are integrated with biophysical models through future scenario planning with stakeholders, economic valuation of marsh adaptation options, and focus groups that place the combined project results within a concrete policy planning context to assess how marshes fit into the larger view of coastal socio-ecological sustainability. This integrated approach at multiple sites along gradients of both environmental and human drivers will allow for general conclusions to be made about human-natural system interactions and sustainability that can be broadly applicable to other coastal systems.